Discipline and Curriculum Integration Using the ALIVE System

Interdisciplinary (99) This project is developing a set of teaching tools that integrate engineering and technical business courses for use in an industrial engineering curriculum. The Active Learning in a Virtual Enterprise (ALIVE) System gives students a series of short intern-like projects in the "Virtual Enterprise," a full-scale supply chain, integrated using information technology, and producing an actual product - desk clocks. Laboratories, either physical or virtual, are organized as business departments. The ALIVE System develops requisite skills in systems engineering, information technology, and business, and addresses visual, active, collaborative, experiential, deductive and global learning styles. ALIVE System modules are also highly portable and configurable to a variety of school environments, sizes, and disciplines. Evaluation plans include extensive host and remote testing of the system and dissemination through two focused symposiums and relevant conferences.